Renovation of the Environmental Engineering Research Laboratories

9313387 Hutzler The Environmental Engineering programs at Michigan Technological University have grown substantially over the past ten years. To accommodate this growth, the university has assigned research space that has been vacated by the Department of Metallurgical Engineering. While some of the space is adequate for environmental engineering research, much of the existing facility is either outdated or unsuitable for research activities. Those laboratories that are adequate for research were equipped in 1968 when the building was constructed, and thus are severely limited for modernized research use. Much of the present research is conducted at several locations on and off campus. This ARI award will provide funding for the renovation of this space to bring it to the standards necessary for the increasing volume of research being conducted by the environmental engineering faculty and students. This includes the renovation of laboratory space, installation of laboratory utilities, and the acquisition and installation of fixed equipment. Once the renovations are completed, faculty, students, and staff will be capable of performing research that they are presently committed to as well as conduct research that they would like to do but cannot within the existing infrastructure. The facility will be able to accommodate additional faculty and students in the renovated area, allowing for continued growth and increased productivity within the Environmental Engineering program. ***